CPS: Medium: Collaborative Research: Collective Intelligence for Proactive Autonomous Driving (CI-PAD)

The aim of this project is to develop real-time situational awareness that is shared via vehicle-to-vehicle (V2V) and vehicle-to-network (V2X). The approach is to combine the perception of sensors with interpretation of their situation to enable safer decisions, and take into account the limitations of the communication between vehicles and infrastructure. A highway system that supports autonomous and self-driven vehicles will include infrastructure sensors and onboard vehicle sensors, with massive connectivity among them and distributed intelligence across the entire transportation network. The resulting collective intelligence is one where autonomous vehicles serve as mobile sensors that augment one another along with fixed infrastructure sensors, to construct a real-time picture of traffic. This real-time picture is used to develop proactive driving actions that optimize traffic flow and minimize accident risk. The broader impacts include focused mentoring of undergraduate students who are interested in careers that require graduate training, to broaden participation in the fields of computing and engineering.

The researchers organize an interdisciplinary project in signal processing and machine learning, control and optimization, communication and network science. The collective intelligence framework for proactive driving includes the following modules: 1) Scene Construction, consisting of signal processing and machine learning for constructing a representation of the driving environment from multi-modal multi-view sensors; 2) Situational Interpretation, consisting of driving environment dynamic analysis at progressive levels; 3) Decision Making, consisting of optimization and control to support proactive driving for safety and optimized flow; and 4) A Failsafe Network, consisting of communication and network science that supports optimized traffic flow under nominal conditions of sensing and communication, and moderated flow under conditions of compromised sensing and communication.